Purchase of Electron Microscope for Teaching Laboratories

We are to developing a number of new experiments for the senior-year undergraduate Solid State Physics Laboratory course with the transmission electron microscope (TEM) they have acquired with ILI grant funds. Such an instrument did not previously exist in the Physics Department and this did not permit the inclusion of microstructural studies in the teaching laboratory curriculum. The provision of the TEM allows laboratory instructors to emphasize the importance of the relationship between lattice structure and electronic properties in the solid state of matter. The experiments demonstrate a number of important phenomena in modern solid state physics including atomic lattice imaging, quantum interference of electrons, charge density waves, and quasi- crystal diffraction. The instrument is being used in both imaging and reciprocal space modes and is available also for Modern Physics course demonstrations of the wave nature of electrons and atomic structure. The equipment, in addition, is available for undergraduate research projects in solid state physics. A laboratory manual and resource book is being written to make the new experiments accessible to other undergraduate programs.